Enhancing Sensitivity to Signals of New Physics

This award funds the research activities of Professor Kirtimaan Mohan at Michigan State University.

Modern particle physics experiments such as the Large Hadron Collider generate enormous quantities of data that can reveal signs of phenomena that cannot be explained by our current theory of fundamental particles and their interactions, known as the Standard Model of particle physics. Unlocking this discovery potential requires both more precise theoretical predictions and new ways of extracting information from increasingly complex datasets. Under this award, Professor Mohan will develop new statistical methods and artificial intelligence tools to improve the interpretation of data from particle physics experiments, use quantum properties of elementary particles as new probes of nature, design novel strategies to search for previously unseen interactions of the Higgs boson, and investigate theoretical models that could explain phenomena that remain beyond the reach of current theories. This research advances the national interest by promoting the progress of science in one of its most fundamental directions: understanding the basic constituents of matter, the forces that govern them, and the origin of phenomena such as dark matter and the matter–antimatter asymmetry of the universe. This project will also have significant broader impacts through the training of graduate students and postdoctoral researchers, development and dissemination of educational materials for computation in physics, public outreach activities, and mentoring programs that help strengthen the scientific workforce.

More technically, Professor Mohan will enhance sensitivity to physics beyond the Standard Model through a combination of improved theoretical precision, machine-learning methods, and novel phenomenological probes, including the use of quantum tomography. He will first use machine-learning tools to develop Bayesian hierarchical models that provide statistically rigorous uncertainty quantification in global determinations of parton distribution functions. Second, he will develop precision probes of interactions in the Higgs sector that violate charge-parity symmetry by exploiting quantum interference effects and quantum tomography, constructing observables that can reveal subtle asymmetries in top quark and Higgs processes, and integrating machine-learning-based unfolding and symbolic regression techniques to enhance experimental sensitivity at the High-Luminosity Large Hadron Collider. Third, he will explore theories of new physics, including their vacuum structure and cosmological implications, with a particular focus on dark matter phenomenology. Collectively, these efforts will provide innovative theoretical, statistical, and computational tools that strengthen the discovery potential of current and future particle physics experiments.